U.S.-P.R.C. Protocol III - Delegation Visits - Travel Grant

9523528 Wang US-PRC Earthquake Protocol Research Exchange: Delegation Visit International cooperative research with other countries has produced cost-effective and fruitful results to mitigate earthquake hazards. In the spirit and in consideration of past involvement of the US-China Earthquake Engineering Program, meetings and coordinated visits are organized for an official Chinese Earthquake Engineering Research Delegation in August 1995. The Chinese delegation is assembled by the Chinese Ministry of Construction, NSF's counterpart in Annex III of the US-PRC Earthquake Protocol, which was just officially extended for five more years until January 23, 2000. This project is supported as a part of the Agreement of Annex III to the U.S./P.R.C. Protocol for Scientific and Technical Cooperative Research Earthquake Studies on earthquake engineering and hazards mitigation for the purpose of international cooperative exchange. ***